Quantizing Effects in Submicron Field Effect Transistors

Spatial quantization of the electron wavefunction and changes in electron scattering which result from the concomitant phase space restrictions will become evident as current micron-size field effect transistors are shrunk to 1/4 micron sizes. Experiments will be conducted to observe electromagnetically induced electron transitions between spatially quantized levels in devices of dimension 0.1 to 0.3 um. The issues of quantum-statistical limits and behavior, discrete energy level structure, and single electron behavior may be addressed by these studies.